Long Term Monitoring and Testing of Waste Paper Sludge Landfill Covers

***
9908150
Zimmie
This award supports the continuation of the long term monitoring and in
situ testing of two existing landfills. The use of waste paper sludge as
landfill covers is an excellent recycling and reuse methodology, and
economically beneficial as well. The sludge can be used to replace
compacted clay layers or geomembranes, which are usually utilized as the
impermeable barrier layer.

These landfills were the first in their states (NY and MA) to utilize waste
paper sludge as the impermeable barrier layers in the cover systems. At
one of the sites, the cover was constructed using compacted clay in places,
so that direct comparisons can be made between the behavior of the paper
sludge cap and a clay cap. This is unique data, and little or no such
long-term data exists.

Monitoring at these landfill sites began between 5 and 7 years ago, and
this award will fund the replacement of some equipment and the field
activities associated with data acquisition.
***